On the Role of Stochastic Wind Forcing in Shaping the Ocean Circulation

0002370 Moore/CU

The response of the ocean circulation to stochastic wind forcing will
be studied in a series of numerical experiments. Wind fields from the
operational meteorological models, together with data from some of the
reanalysis efforts will be partitioned in frequency space. The higher
frequency components will be regarded as stochastic. An additional
estimate of the stochastic component of the wind field will be obtained
by identifying the part that is uncorrelated with sea surface
temperature. Idealised, quasigeostrophic ocean models will be forced
with idealized stochastic wind fields derived from the data products
previously described. The oceanic response will be compared with that
predicted by the leading singular vectors of the oceanic flow. More
realistic ocean models will be forced with both idealized wind fields
and the data from the operational and reanalyzed products. The
behavior of these more realistic runs will be compared with the
stochastic optimals of the more realistic flow and with TOPEX/POSEIDON
altimeter data.